The Use of Microcomputers in Electronics Laboratories

The Physics Department of San Diego State University will computerize its advanced electronics laboratory by introducing microcomputer aided measurement and analysis to the present experimental program. Approximately 100 science students each year will benefit from this program, both in learning how to use modern microcomputers and in speeding repetitive measurement tasks with their assistance. Each student lab station will have a host Macintosh microcomputer connected to a smaller data acquisition microcontroller. Electronic data measurements will be made by the microcontroller upon student order to the host computer. The numerical values obtained will be sent back to the host for further analysis.